Continuing Innovation in Information Technology: A Workshop

The very success of the industries that produce information technology (IT) and the pervasiveness
of their products and services in our daily lives can obscure the mutually reinforcing
roles that industry, government, and academia play in conducting IT research and its translation
into new products, services, and industries. This project will capture examples of such phenomena
as how much industry builds on government-funded university research, the long incubation
periods sometimes needed for research to be translated into major industry activities, the
steady work and funding required to get from initial exploration to large-scale commercial
deployment, the interdependencies between research advances in different subfields, and the
complex nature of the IT research ecology. This project will build on earlier work by
developing additional and/or more in-depth examples and providing updated information
on research impacts and the other phenomena listed above in the context of these examples.